Macroeconomic Analysis of Money and Specialization

One of the major features of the modern economy is that individuals specialize in production and sometimes in consumption, and that the trading sector plays an important role in intermediation between producers and consumers. This project will investigate two problems of the economy with specialized producers and consumers: one is on the trading process and the other is about business cycle. The first problem explores (i) how the monetary exchange system facilitates matching between producers and consumers, and how it is related with the degree of specialization of the economy, and (ii) how different monetary regimes and monetary policy rules affect the behavior of macroeconomic variables and social welfare. The performance of different monetary systems will be analyzed using a framework in which the use of monetary exchange and the degree of specialization are endogenously determined. The second problem to be explored involves analyzing (i) how price setting behavior of monopolistic producers affects the cyclical property of macroeconomic variables, and (ii) how product innovation interacts with the business cycle, and particularly how the research and development activity by firms can be an important source of business fluctuations.